An Inventory of the Ethnographic Collections of Bishop Museum

The Bishop Museum is the repository for over 105,000 ethnographic objects from the Hawaiian and Pacific areas. These unique and irreplaceable items, the result of systematic anthropological research, are an important national resource that needs to be protected for posterity and future research use. In 1991 the Bishop Museum will move its anthropology collections into a new storage facility. In order to prepare for this move, the museum staff will conduct a computerized inventory and condition survey of the ethnology collections. This will result in a detailed catalogue which may be used by researchers as well as insure that the collections are moved safely. This project will insure that the ethnographic collections in the Bishop Museum are accessible and can be used in the future by scientists from across the country to advance our knowledge of the natural and cultural history of Hawaii and Pacific peoples.